Analysis of General Combinations of Structural Loads by Translation Processes

This research project will continue efforts in the area of probabilistic analysis of structural loads and will attempt to overcome some of the limitations of the current methods for load combination analysis. A major objective of the project is the development of a simple and general approach for approximating the largest value distribution and other descriptors of individual load effects and their combinations. It is planned to: 1) examine novel load models (translation processes) that can be obtained from Gaussian processes by nonlinear transformations, 2) develop techniques for the analysis of linear and nonlinear combinations of independent or dependent translation processes, and 3) calibrate the proposed models to common structural loads based on statistical observations of these loads and to determine probabilistic characteristics of their combined effect.